A Community College-Directed Capacity Building Project to Increase Certified Secondary School Science, Mathematics, and Technology Teachers

This project aims to serve the national need of building the capacity to increase the number of highly skilled, licensed STEM high school teachers. To do so, the project intends to lay the foundation for a pathway from high school through community college to STEM teacher certification. An important expected contribution of this project is identification of barriers facing rural high school students from low socioeconomic backgrounds to become licensed STEM high school teachers. This information is important because the project will first invest time in understanding the needs and the challenges facing the community and the students who will be served by this pathway. A key project activity will be building the necessary relationships among the local school districts, four-year institutions, and the community college leading the effort. This Capacity Building project is expected to yield a Track 1 Noyce proposal that will support students from high school, through a local community college, to four-year institutions to obtain their high school STEM teaching license.

This project is led by Klamath Community College (KCC), a two-year, open access, public post-secondary institution. KCC is partnering with Southern Oregon University (SOU), a comprehensive, public university, and the Oregon Institute of Technology (OIT), a public, four-year polytechnical college, as well as local educational agencies. The project aims to create the infrastructure for a “grow-your-own” pathway for students in high school, community college, or four-year institutions to become licensed secondary school STEM educators for rural South-Central Oregon. It will conduct a needs assessment, create formalized partnerships including dual-enrollment and articulation agreements, and systematically gather and analyze data that will guide the creation of a pathway for the licensing of secondary STEM educators. The project’s intellectual merit includes understanding the role of community colleges in identifying and addressing the needs of STEM high school teachers from a local, rural community with a poverty rate almost twice the national average. The project’s broader impacts include the potential to motivate other community colleges to engage in capacity building for similar efforts. Project outcomes include evaluating current practices for recruiting undergraduate students to become STEM high school teachers. The project intends to disseminate findings through local and national channels including conferences focusing on STEM teacher education. This Capacity Building project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the persistence, retention, and effectiveness K-12 STEM teachers in high-need school districts.